Biophysical Studies of Vicia Faba Protoplast Ion Channels

Plant hormones interact with genetic and environmental factors to regulate every aspect of plant growth, development and physiology. Despite intense effort, mechanisms of plant hormone actions are not well defined. This project will examine the effects of plant hormones on plant plasma membrane ion channels in an effort to define their mode of action. Patch voltage clamp, magnetic resonance, and fluorescence techniques will be used to determine if models of intracellular control based on calcium entry or internal calcium release can account for the diverse effects of plant hormones. In particular, suspension cell culture-derived protoplasts and isolated guard cell protoplasts of Vicia faba will be examined to identify ion channels, to measure channel selectivity and voltage dependence, and to test whether voltage changes may arise from the action of electrogenic proton pumps, channel activation, or a combination of pumps and channels. A specific model of stimulus-linked changes in guard cell volume will be tested. The results of these studies should contribute substantially to our understanding of basic mechanisms of action of plant hormones.